ENGINEERING RESEARCH EQUIPMENT: Computers and Experimental Antenna Array System

9310718 Xu The Department of Electrical and Computer Engineering at the University of Texas at Austin will upgrade and purchase computers and antenna array system equipment which will be dedicated to supporting research in engineering. The equipment will be used for several research projects, including in particular: control and performance analysis of high-speed telecommunication networks, smart antenna system for wireless communications, high-resolution direction finding, blind equalization, and channel propagation measurement. ***